STTR Phase II: Novel Lipid Deposition for Biosensor Surfaces

This Small Business Technology Transfer Research (STTR) Phase II project will use the LPG (Long Period Grating) technology to interrogate the interactions between drugs and G-Protein coupled receptors (GPCRs). To effectively study these interactions, one has to stabilize the GPCRs by immobilizing them to lipid layers. This Phase II project will focus on optimizing the lipid selection, composition, and attachment to the GPRCs and to the surface of the sensor. The development of stabilized lipid based GPCR coating for the LPG biosensor will provide a valuable tool in the area of drug discovery.

The commercial application of this project will be in the area of new high throughput proteomics instrumentation to aid in the development of new therapeutic products.